A Planning Visit to Initiate an Investigation of Mediation In Militarized Crises

9724768 Leng This award will support a planning visit by Professor Russell Leng to New Zealand to consult with Professor Jacob Bercovitch of the Department of Political Science of the University of Canterbury, Christchurch on the development of collaborative research on mediation in militarized crises. They will develop the research design for an investigation of the effects of different mediation strategies, occurring within different contexts, on the evolution and outcomes of interstate crises. Professor Leng's data set provide detailed, act-by-act descriptions of the evolution of crises. Professor Bercovitch's data provide important descriptions of the context in which mediation was undertaken. The integration of the two sets will provide a more comprehensive understanding of the problem and solutions.